Matching Funds for the Acquisition of a Direct Current Plasma Emission Spectrometer

Matching funds are provided to replace a ten year old Indirect Current Plasma spectrometer system which is no longer functional. The new direct current plasma emission spectrometer will be used by faculty and students within the department for marine and continental rock and pore water studies.